Parallel Computing and Visualization Infrastructure for Scientific Computation

The Computational and Applied Mathematics (CAM) group in the Department
of Mathematics at the University of California, San Diego is proposing
the purchase of a 64-bit, 33-node blade rack system, using NPACI Rocks
Linux-based software, to improve and upgrade their current parallel
computing capabilities. The proposed equipment will support fundamental
research and education in computational science. The research of the
group includes, but is not restricted to, five core projects:
(1) New algorithms for parallel computation with adaptive multilevel
finite-element methods.
(2) The level-set method in computationally intensive environments.
(3) Optimization with partial differential equation constraints.
(4) Finite element modeling applications in biochemistry and physics.
(5) Hybrid finite-element level-set methods for stress-driven
interface dynamics in materials science.
Each of these projects is computationally intensive and requires the
extensive use of parallel computation. The Investigators have combined
expertise in applied mathematics, numerical optimization, numerical
partial differential equations and parallel computation. Access to
state-of-the-art parallel computers has played a vital and formative
role in the research and educational program offered by the CAM group.
The proposed equipment will provide an order-of-magnitude improvement
in the computing capabilities of the group and will allow them to
consider even more challenging computational problems and applications.

The Investigators are participating in a wide range of outside research
projects that include applications of computational science in off-shore
petroleum exploration, protein modeling, the numerical modeling of
black holes, the modeling of crystal growth and biomembranes, the
capture of diffraction effects of waves, and path planning. An important
goal of the CAM group is the development of software for computational
science and its dissemination within the manufacturing, engineering and
scientific community. Software developed as part of the project will
provide an effective method of technology transfer and will extend the
scope and effectiveness of the existing codes PLTMG, FETK, SNOPT and
IOTR that have been developed by the investigators at UC San Diego.
The software component of the project will have a substantial impact on
research involving the modeling of complex systems as it will provide
scientists and engineers with instant access to state-of-the-art methods.
The members of the CAM group offer a program of instruction and research
that emphasizes the role of computational science in the formulation,
modeling, and solution of problems from diverse and changing areas. The
research and educational activities supported by the proposed equipment
will help attract advanced graduate students into the area of computational
science, which plays a vital role in the study of systems arising in
manufacturing, engineering and the natural sciences.